Acquisition of Geographic Information System (GIS) Software and Hardware

9304456 Lees This award provides one-half the funds needed to acquire computer hardware and software to be installed in the Department of Geology and Geophysics at Yale University. Yale is committed to providing the remaining funds needed for the acquisition. The equipment will contribute to a geographical information system that will be used by Department faculty and students for acquiring, manipulating, and portraying a wide range of map-based geologic and geophysical data. ***